Dynamic Failure of Functionally Graded Materials: Experiments, Analysis and Simulations

DYNAMIC FAILURE OF FUNCTIONALLY GRADED MATERIALS: EXPERIMENTS, ANALYSIS AND SIMULATIONS

Project ID No.: CMS- 0115954
PI: Glaucio H. Paulino; Co-PIs: John M. Lambros and Philippe H. Geubelle

Abstract

This project involves an integrated study including experiments, analysis and simulations to develop a fundamental understanding of the effects introduced by material property gradients on the static and dynamic fracture behavior of functionally graded materials (FGMs). Two distinct material systems, exhibiting brittle-to-ductile transitions will be used: polymer-based (ECO) and ceramic/metal based (ZrO2/steel) FGMs. A detailed investigation of the effects of microstructure as a function of manufacturing processes and processing history on the macroscopic properties of the FGM will be conducted. The modeling involves development of a novel cohesive volumetric finite element (CVFE) code tailored for FGMs. All the work is developed in conjunction with an educational program.